Evolution of Intraplate Magmas: An Experimental Approach

9902931
Lindsley
The goal of this research is to (1) test the hypothesis
that a variety of magma suites associated with plumes and rifting might be
descended from a common parental (although not primitive) magma; (2)
determine variations in magmatic fractionation trends that are controlled
by different pressures and oxidation states; (3) assess possible relations
between melts associated with anorthosites; and (4) test whether the
solubility of carbon at moderate pressures can cause strong iron-enrichment
in some magmas. The experimental technique used is fractional
crystallization experiments performed in piston-cylinder pressure
apparatus, with a variety of pressures, sample containers, and imposed
oxygen fugacities. Experimental products are examined using the
petrographic microscope, x-ray diffraction, and the electron probe
microanalyser. When reactions between minerals and melt occur, or when the
proportion of crystals exceeds 50%, a new bulk composition will be
synthesized, corresponding to the composition of the melt in the previous
experiment. This procedure permits evaluation of fractional
crystallization as temperature is lowered, yet maintains a relatively high
proportion of melt in each experiment, which is useful for microprobe
analysis and attainment of equilibrium.